Geometrical and Physical Phenomena in Algebraic Topology

DMS-0305853
Igor Kriz

Algebraic topology is an area which examines properties of
shapes not affected by continuous deformation: in a traditional
example, a coffee cup made out of modelling clay can be
continuously, without gluing or tearing,deformed into the
shape of a donut, but not a solid ball (because of the `hole'
in the handle). Sophisticated methods using algebra, primarily
groups, were developed to describe and explain such concepts.
String theory is an area of theoretical physics which is
currently the best candidate for solving the greatest puzzle
of modern physics, namely unification of gravity with the other
forces of nature. The fundamental idea of string theory is that
very small particles may not be `dots', but $1$-dimensional
objects (`strings'). The present project focuses on connections
between algebraic topology and string theory. While physicists
know about the fact that topology is connected to the phenomenology
of strings, the present project explores connections of a new
nature. Notably, algebraic topology is needed in making the
concepts of string theory mathematically rigorous, which in turn
is a necessary step toward possibly using such concepts for
scientific prediction. On the other hand, string theory
suggests exciting new methods for algebraic topology, which
will also be explored in this project.

The investigator will continue to work on using string theory to
construct mathematical models for elliptic cohomology. He will
also consider extending these methods to finding generalized
cohomology theories related to D-branes and M-theory. In the process,
he will work on mathematical theories which will serve as
axiomatic systems for fundamental and extended objects of string
theory. Many aspects of this project are joint work with Po Hu.